Mathematical Sciences: On Zeta - and L - Functions

This research will concentrate on the study of the vertical distribution of zeros of L-functions and, in particular, to try to prove the existence of small gaps between zeros of the Riemann zeta-function or of a Dirichlet L-function. The research in this proposal concerns one the most venerable problems in number theory, namely the study of the various L-functions of classical analytic number theory. They encode various number theoretic facts. It turns out that their zeros are fundamental to the solution of the number theory problems that they are set up to solve. This research will undoubtedly yield much insight into these important problems.